Cankdeska Cikana Community College Rural Systemic Initiative

Cankdeska Cikana Community College was part of cohort 3 of the Tribal College
Rural Systemic Initiative (TCRSI). Programs in this cohort received planning support in
the first year, with the subsequent two years used to implement systemic reform. As a
result of this initial funding, 100% of the teachers at the target schools were trained and
began to implement standards based curriculum in their classrooms. Strategies for Phase
II were selected based on extensive research on high poverty schools that scored highly
on standardized achievement measures. Effective reform efforts have been shown to
provide professional development programs of high quality, be well coordinated with
desired instructional outcomes results oriented, and have consistent policies throughout
the system. Successful schools carefully assessed student performance in comparison
with standards and created additional time for academic instruction. Based on this
research, the C4 Initiative will expand on the following three fronts.

PROFESSIONAL DEVELOPMENT

Standards Based Curriculum training offered twice
per year will acquaint new hires and provide current developments for experienced
teachers. Additional training sessions will focus on standards based assessment, including
objective, standard alternative assessments to standardized tests. C4 will coordinate a
Summer Science Institute during which teachers pilot lesson plans using independent and
guided research in mathematics and science, and alternative assessment. With the
coordination of C4 this curriculum will be piloted, evaluated and revised by the teachers
involved in implementing it. This teacher-as-researcher model is anticipated to
contribute to the scientific training of the workforce, and increase school commitment to
the curriculum. An innovation in this area is the inclusion of a second strand of training
for paraprofessionals, with a separate Summer Institute for teacher aides.

CONSISTENT POLICIES

The existing RSI Council of reservation programs aimed at
improving SMET at the k through 14 level will be expanded to include Title I and RSI
programs on other reservation. This committee will meet monthly to coordinate activities
that will leverage resources, maximize teacher participation and have the optimal impact
on student achievement. The Project Director will be appointed a member of the
curriculum committee at each of the target schools. These committees are charged with
adoption, implementation and publication of policies supporting standards based
curriculum and other aspects of systemic reform. Extensive use of telecommunications
will facilitate coordination with off-reservation programs.

COORDINATED RESOURCES

Examples of resource coordination outcomes are dual
high school-college credit course to increase advanced opportunities in mathematics and
science, and training at the state Indian Education Association conference supported
jointly by all North Dakota reservation RSI projects. RSI staff and Council will
coordinate the development of after-hours instruction in mathematics and science, funded
by resources from private and federal grant funded programs already on the reservation.
Training for these programs and policy development will be provided with RSI funds and
by the RSI Council respectively.

Cankdeska Cikana can draw upon three years of successful collaboration with the school
districts and an experienced RSI Project Director who is an enrolled tribal member and
also a former middle school mathematics and science teacher. As such, the project begins
with a high level of credibility with the target school administrators and teachers.